Presidential Young Investigator Award: Design for Injection Molding

Life-cycle engineering design addresses not only the functional requirement of a product, but its life-cycle values such as manufacturability, serviceability, reliability, and recyclability. The goal is to establish a systematic methodology to maximize the users' life-cycle values and minimize cost at the early stages of design. This research will allow a long range development of broad and fundamental techniques and methods to support life-cycle design. These methods and techniques will be developed/verified through examples provided by industry projects.